III: Large: Causal Databases

The commercial success of data mining, and the great research interest
that this area attracts, prove that there is a need for analyzing and
understanding data that goes well beyond classical database queries.
Users are often particularly interested in understanding the causal
relationship between data items and the reasons for observations.

Current database systems cannot explicitly model the causal structure
within data (although it is often implicit in the data), and thus offer
no specific support for causal queries. In the absence of information
about causal relationships, users have to rely on techniques for mining
for statistically significant patterns in data. Causal relationships
are often simply concluded from statistical dependencies. This can lead
to inaccurate conclusions; correlation does not necessarily imply
causation.

This project creates the foundations for a new breed of databases
called causal databases. Causal databases can model causal information,
and allow for queries regarding causality and explanations, which are
beyond the scope of current databases. They can also take advantage of
causal information that is implicit, but unexploited, in some current
databases, such as those for large engineering projects. In the
project, new database models and query languages for representing and
transforming causal information are developed, with particular focus on
large engineering databases and scientific databases. In addition,
efficient and scalable techniques for processing causality and
computing explanations in large causal databases are developed. This
involves both work on integrating causality processing into traditional
database query processing architectures and the development of special
datastream techniques for scaling up to the most data-intensive
applications.

Further information on the project can be found at the project web
page: http://www.cs.cornell.edu/databases/causality/